SGER: Exploratory Human-Centered Computing

This work addresses the need for a deeper understanding of human communication in situations where more than one channel and mode are employed. The context in which this problem will be studied involves human-machine and human-human communication when one of the users is deaf-blind. This student and another undergraduate student are working on the project with the investigator using a process known as scenario-based design. Of particular interest is the use of typing and synthetic speech for production of messages by the deaf-blind user, and speech recognition and Braille for the reception of the partner's side of the conversation. A portable, prototype system will be created and evaluated in the setting of the University campus. The work is done in the experimental undergraduate laboratory known as the Idea Factory, developed to encourage students with disabiliites to pursue the study of science, engineering, and mathematics.